Engineering Creativity Award: Biodegradable Polymers for Orthopedic Applications

The primary objectives of this research project are the synthesis and characterization of a new class of biodegradable, phosphorous-containing polymers. The biological, chemical, and mechancial properties of these polymers will be evaluated to determine their potential for orthopedic implant applications. The synthesis technique involves the polycondensation of a diol, the main component of the backbone, and a phosphate compound which contains a pendant molecule. The two are dissolved and blended together. After separation into an organic layer, the polymer is washed and quenched in a petroleum ether. The final product is a clear, white powder. A wider variety of polymers can be anticipated by further changing the components and degrees of cross-linking. The polymers will be characterized chemically in several ways. Fourier transform infrared spectroscopy, gel permeation chromatography and differential scanning calorimetry are characterization techniques that will be used. A comprehensive model will be considered to explain relationships suggested by the results of testing. Such factors as the mechanism of polymer particle release to the physiological environment, the effects of certain biological agents on the degradation process, the ability of the polymer to induce significant tissue in growth, and the degradation and eventual performance of the implant will be investigated. A wide range of medical orthopedic applications is possible: less rigid fixation plates, joint stabilty with fixation rods, resurfacing materials to induce regeneration, and prosthetic ligaments and tendons.